Experimental and Computational Studies of Complex Viscoelastic Flows

Research will be conducted on the complex flow of viscoelastic fluids. The approach is through complementary use of experimental and numerical simulation techniques. The experimental part is based on rheological characterization, and also a combination of Laser-Doppler-Anemometer and fluid birefringence measurements. Numerical simulations are via finite element modeling using both differential and integral constitutive descriptions of the fluid. Polymeric material processing involves flow characteristics of complex fluids, and greatly improved modeling and predictive capabilities are required for reliable and realistic process design.